Conference: GameSec 2026 Student Travel Support

The Conference on Game Theory and AI for Security (GameSec) Conference 2026 aims to bring together researchers interested in establishing a theoretical foundation for making resource allocation decisions that balance available capabilities and perceived security risks in a principled manner. The conference invites novel, high-quality theoretical and empirical contributions that apply game theory, AI, and related methodologies to security, privacy, trust, and fairness in emerging systems. This project provides funding to support the travel expense of graduate students to attend the GameSec Conference. Through this conference, students will advance the understanding and application of AI-driven strategies for securing critical infrastructures and emerging technologies. The event will also engage students through the activities among academia, industry, and government to explore interdisciplinary connections between game theory, reinforcement learning, adversarial machine learning, mechanism design, risk assessment, behavioral modeling, and cybersecurity. This project will strengthen the cybersecurity and AI workforce development.